The Dynamics and Impact of Criminal Law Reform

Since the early 1970's there has been growing concern with the response of the criminal justice system to the crime of rape. Many people have questioned the special status of rape as an offense where the victim, as well as the defendant, is put on trial. Some have suggested that the laws and the rules of evidence relevant to rape have resulted in pervasive skepticism among police, prosecutors, judges, and jurors about rape victims' claims. In response to these concerns, most states have reformed their rape laws but these statutes vary in range of reform and comprehensiveness. Reformers expected that the new laws would reduce both the skepticism of criminal justice officials toward rape victims and their reliance on extralegal considerations in decisionmaking. They anticipated that the reforms ultimately would lead to an increase in the number of reports of rape, and would make arrest, prosecution, and conviction for rape more likely. For the last few years, Drs. Spohn and Horney have been embarked on a research program studying the impact of rape reform legislation. In an earlier NSF-funded study, they collected data on the outcomes of more than 24,000 sexual assault cases indicted from 1970 to 1985 in six jurisdictions. They found that the legal changes produced significant effects only in the jurisdiction (Detroit) with the strongest and most comprehensive reforms. The present project builds on the earlier study by: (1) specifying more precisely the nature of the impact in Detroit; (2) determining whether more subtle effects may have occurred in Detroit and in a second jurisdiction (Chicago) where strong reforms did not affect overall case outcomes; and (3) assessing the role of legal and extralegal variables in the processing of sexual assault cases. Detailed data will be collected on a sample of cases in Detroit and Chicago and will be analyzed to determine the relative influence of victim, defendant, and case characteristics on the disposition of these cases in the pre-and post-reform periods. The results of this research will advance understanding of the ways in which rape reform legislation affects policy change and the subsequent processing of rape cases by the legal system. It has both theoretical and practical relevance in that it will contribute to scientific knowledge more generally on the effects of legislative change on reform and to our ability to improve the manner in which the criminal justice system handles offenses.